Molecular Biology

This award will support participation by graduate students, postdocs and senior researchers in the summer program in Molecular Biology, to be held at the Institute for Mathematics and its Applications, July 5-29, 1994. This program will bring together molecular biologists and mathematicians who have worked on protein sequencing, protein folding, molecular dynamics and the various mathematical, statistical, and computational aspects involved, in order to increase interaction, to discuss future directions and to speed up progress in the area. The first two weeks of the program will deal with linear representations of genomic information: genetic and physical mapping and DNA sequencing. The last two weeks will be devoted to numerical and analytic models for the simulation of the spatial structure of proteins, DNA and RNA.